REU SITE: Physics REU Program at Arizona State University

9988056
Culbertson

The Physics Department at Arizona State University continues operation of a Research Experience for Undergraduates (REU) Site. The REU Site offers student research projects in areas of current interest in experimental and theoretical condensed matter physics. Ten undergraduate students are recruited every year throughout the U.S. for a nine-week summer research experience.